Nonlinear Dynamical Analysis of Time Dependent Nocturnal Boundary Layers

The PIs will utilize techniques of nonlinear dynamics to characterize parameter spaces supporting various solutions. This will help to predict stable boundary layers. Systems of ordinary differential equations (ODE) will be used along with more complete partial equation (PDE) descriptions of these systems. The project will analyze both the simpler ODE systems and the PDE systems. Multidimensional bifurcation and regime diagrams will be developed to describe the role of various parameters in determining the solution regimes.